An Integrated Early Childhood Science Curriculum: The Key to School Readiness

9911630
FRENCH

This project has the potential to influence early childhood education by creating, testing, and disseminating a science-centered preschool curriculum that enhances science understanding and the intellectual development of all children in the 3-5 age cohort, particularly girls, low income and minority children. The curriculum, sufficient for one year, will consist of coherent and integrated, science-based, classroom activities, and related material for assessment and parent involvement. Science topics provide the contexts for activities across the curriculum and support the development of a rich knowledge base and problem solving skills. Science-based materials for outreach to parents will be developed utilizing "Science ZipKits" that will link day care/school centers and homes and continue the science explorations begun in the centers. The new instructional materials will be based on current activities that are developmentally appropriate, engaging for all preschoolers, and have been shown to be effective for all children.